Improving the Laser Electro-Optics/Fiber Optics Curriculum Through the Acquisition of an Ultraviolet Pulsed Laser System

This project introduces Laser Electro-Optics/Fiber Optics and Engineering Technology students to the properties of an Excimer Laser system. This system (with wavelengths from 350nm to 175nm) can also be linked to a Dye Laser to produce wavelengths below 175nm. This overall range is important because of the current interest in applications in fusion, medicine, and thin films. Students gain experience in determining the attenuation of ultraviolet wavelengths through a variety of waveguides, testing different materials for absorption and reflection properties, and the finding the effects on various animal tissue samples and crystals. The award is being matched by an equal amount from the principal investigator's institution.